Revitalizing IT Education: A New Model for Community Colleges

Two ATE centers combine their strengths and assimilate their research and results to provide resources and services for revitalizing information technology (IT) education starting at the community college level. The National Workforce Center for Emerging Technologies (NWCET) brings its expertise in developing industry-based, nationally validated skill standards to inform curriculum development. The Center for Information Technology Education (CITE) brings its expertise in developing and implementing problem-based learning to provide a framework for industry involvement in curriculum design, content learning activities and assessment. Together these activities bridge the skills and knowledge gaps between education and industry. The centers collaborate with the Center for Learning in Informal and Formal Environments - a Science of Learning Center at the University of Washington - to apply the most current research in learning sciences to develop new models of instruction for attaining and assessing transfer and adaptive expertise. The result is a next generation clearinghouse model that is easily navigable and customizable to the needs of the user.